RIA: Communication and Synchronization in k-ary n-cube cluster-c Scalable Systems

Panda This project studies wormhole routing in clustered multiprocessor systems. A clustered system raises new communication and synchronization issues in parallel systems by deviating from the traditional assumption of one processor per node. This project addresses these issues by: 1. developing communication algorithms for frequently used communication patterns on clustered systems; 2. developing synchronization mechanisms and algorithms to provide concurrent intercluster and intracluster synchronization; and 3. developing guidelines and architectural supports for interfacing processor clusters to k-ary n-cube wormhole-routed networks. Theoretical and probabilistic analysis together with simulation experiments are being used to develop and validate the results. This research promises significant impact on the development of future clustered scalable systems supporting various programming paradigms such as distributed-memory, cache- coherent shared memory, and distributed-shared memory.